Geometry of Eigenvalues, Eigenfunctions and Minimal Surfaces

Abstract

Award: DMS-9971932
Principal Investigator: Nikolai Nadirashvili

We shall study the upper bounds for eigenvalues on surfaces. Let
M be a smooth compact two-dimensional surface. Assuming that the
area of M is equal to 1, one can prove that for each k,the k-th
eigenvalue of the Laplacian on M has an upper bound depending
only on the topology of M; however, the sharp upper bounds for
the egenvalues are known for only a few surfaces. We plan to
confirm Rauch's ``Hot Spot'' conjecture on the location of the
supremum of the second Neumann eigenfunction on a convex plain
domain. We shall study the Liouville type properties for
complete minimal surfaces. Recently the author proved the
existence of a complete and bounded minimal surface. This result
settled in the negative the problem of Calabi and Yau. We expect
that mild additional assumptions will give us the nonexistence
result for complete bounded minimal surfaces.

Elliptic second order equations are at the heart of different
fields of mathematics and especially in the problems of applied
mathematics, fluid dynamics, elasticity, etc. For applications
one mostly needs information about the geometry of the solution
of the elliptic equations, locations of their critical points,
dependence of the spectrum on the shape of the domains, etc. We
are planning the study of the geometry of solutions and
eigenfunctions of elliptic equations. In particular we study the
problem of the location of the hottest point in an isolated body
in the absence of inner sources of heat. It is expected that
whatever the initial distribution of the temperature the hottest
point after a certain period of time will reach the boundary of
the body. This is a long-standing conjecture, so far proved for
the bodies of the simplest shape like balls, cubes etc. We are
planning to settle the "hot spot conjecture" for a wide class of
domains.